Acquisition of Fire Modeling Research Apparatus

9601796 Lucht This project is an equipment award describing instrumentation to be acquired. It should be emphasized that, while the below is a simple listing of the equipment, installation will result in a fully integrated system aimed at fulfilling the project objective. The instrumentation will fill voids in the new Fire Science Laboratory, enabling a more robust range of data to support fire model development and validation. Use of this equipment is described in the previous section of this proposal. Equipment is: o The NBS Smoke Chamber manufactured by Superpressure Inc. will be up-dated to attain current ISO 5659 and ASTM E662 protocol. o Conical Radiator Furnace (CRF), and Data Acquisition System. o Oxygen Analyzer o Automated Infrared Imaging System o Suppression Agents o Phase Doopler Particle Analyzer ***